Computer Science, Engineering, and Mathematics Scholarship Program

This program provides scholarships to financially disadvantaged students, particularly those from underrepresented groups, at the freshman and sophomore levels in the fields of Computer Science, Engineering, and Engineering Technology. The program includes early identification and preparatory activities, summer bridge program, community building, time on task study groups in calculus and physics, faculty/staff/student interaction, and special topic courses including Cooperative Learning Calculus and Physics. Faculty from the College of Engineering including the computer science department and faculty from the College of Applied Sciences Engineering Technology Programs serve as faculty mentors.